Technology Literacy Workshop

A workshop is being conducted to help define the major issues in the effort to address technological literacy at the undergraduate level. Topics of discussion include: identification of successful implementations, obstacles to courses on technology, learning objectives and student outcomes, relevant assessment tools and techniques, strategies for developing a scholarly community in the area, potential means of stimulating growth of interest in the topic, implementation in different types of institutions including community colleges, perspectives and issues concerning women, underrepresented minorities, and considerations regarding inclusion of persons with disabilities. The intellectual merit of this work stems from furthering an understanding of the how to promote technological literacy among undergraduate students. Broader impacts to society will result by the workshop having a direct influence on the ability of undergraduate education to contribute to the development of a technically literate citizenry. A report summarizing the findings of the workshop is being prepared and will be disseminated widely.